A Toolkit for Conformational and Kinematic Analysis

This award will support the research of Dr. Havel, who will develop new computational methods and software for determining the conformational states and kinematic behavior of mobile molecules by means of geometric reasoning. The resultant computer programs are expected to be of value to researchers in many areas of structural chemistry and biochemistry, including spectroscopists who wish to interpret their data in terms of a precise molecular modes, stereochemists who need to find all conformers consistent with a given bonding arrangement, and molecular biologists attempting to predict protein and nucleic acid conformation. Because a wide variety of information concerning the structure of molecules can be encoded in terms of constraints on their interatomic distances, the first goal is to improve understanding of and ability to reason directly with these constraints. The next goal is to devise more efficient and reliable methods of finding atomic coordinates compatible with the constraints, and determining what motions are consistent with them. The final goal is to have the resulting program integrated into a widely available molecular mechanics package, so that they can be easily applied to a wide variety of problems.